Function of Material Investment in Lepidoptera

This project is part of an ongoing study of the function of the large material donation or spermatophore transferred by male monarch butterflies (Danaus plexippus) during mating. Because there will often be a tradeoff between investment in present and future matings, investment by males in more resources than are necessary to ensure fertilization in a single mating is of theoretical interest. Two possible, but not mutually exclusive, hypotheses are the focus of the project. These are that the spermatophore provides nutrients to be used by the female in offspring production (paternal investment), or that it delays remating by the female, increasing the time during which the donating male's sperm are used to fertilize eggs (mating effort). Studies of sperm competition and mating frequencies of wild butterflies will allow estimation of the portion of a male's investment that is available to his own offspring, and relative fitness gains from the nutrient and delayed remating effects of spermatophores.***//